Studies of the Compositional and Temperature Effects on the Optical Properties of Flame Soot

Abstract Charalampopoulos 9528598 The objectives of the proposed research is to study the effects of chemical composition, temperature and/or microstructure on the refractive indices of soot. The proposed studies involve both ex-situ and in-situ measurements. In the ex-situ studies particles will be collected from premixed propane/oxygen and acetylene/oxygen flames and formed into smooth pellets. These pellets will be analyzed for their carbon/hydrogen ratios and from ellipsometric measurements their refractive indices will be determined in the wavelength range 0.30 - 10 mm and for the temperature range 25 to 2500C. By correcting for voidage effects, the refractive indices of the particles which constitute the pellet surfaces will be determined. In-situ studies on the same flames, consisting of scattering, extinction and polarization measurements, will be used to obtain particle diameters, number of primary particles/agglomerate, number of agglomerates and the refractive indices of the primary particles. Aggregates of known configuration and refractive indices will be added to a CO/Air diffusion flame in order to test the experimental and data inversion approaches. Through this investigation the PI hopes to be able to account for the non-sphericity of the soot particles, test the methodology of the in-situ studies using straight-chain agglomerates, compare refractive indices obtained by the in-situ and ex-situ methods, and identify the critical parameters in determining soot refractive indices.